A Theoretical Treatment of Polymer Solutions and Polymer Blends

This research grant, funded by the Divisions of Materials Research and Chemistry, is aimed at providing a description of polymer solutions and blends which has a solid basis in statistical mechanics, yet is accessible to experimentalists for understanding current results and designing future work. The research involves developing a theoretical description of these systems using integral equation techniques where the goal is to understand equilibrium properties, especially those concerned with miscibility. Progress has already been made using a lattice model to describe a binary incompressible mixture and a compressible pure fluid. New research will be done in two areas: further development of the lattice model and extension of this treatment to a continuum model. The lattice model, which can be solved analytically, can be checked against simulation results, almost all of which are done on lattice solutions. The continuum model is closer to reality, but analytic solutions are not possible. %%% Calculations will be done to describe the properties of liquid polymers and their mixtures. The models will be based on statistical mechanics results for liquids and complement other models describing these material systems. The results will be important in interpreting experimental results and for designing new materials.